Transverse Phenomena in Ensembles of Multistate Fermions

The research on this new grant will focus on transverse phenomena in ensembles of multistate fermion systems. One theoretical objective is to bridge the gap between the new, actively developing field of spin-polarized quantum systems and conventional theories of low temperature systems of particles with internal degrees of freedom. Another objective is to develop a general theory of transverse (off-diagonal in internal states) phenomena in systems of multistate fermions. The Fermi liquid theory fails to describe this class of effects and needs, at the minimum, to be modified. There will be strong interactions with various experimental groups in order to apply the developed theories to ultralow-temperature thermometry, boundary effects and new quantum coherent effects in ultra-cold atomic ensembles and beams, and some quasi-particle systems in solids. %%% Fermi liquid theory has been the standard model for many years of the collective properties of interacting fermions at low temperatures. However, recent work on spin-polarized systems at ultra-low temperatures has indicated that the Fermi liquid model is deficient at these extreme conditions. This research will modify the Fermi liquid model, or develop new models as necessary, to deal with these new phenomena.